International Conference on Wear of Materials 1987, Houston, Texas - April 5-9, 1987

Resources are provided to support the editorial tasks of the Inernational Conference on Wear of Materials-1987. The conferenc is held every two years and attracts 300 scientists and engineers from the U.S. and abroad. Over 150 manuscripts and abstracts are reviewed for the conference and nearly 100 are selected for publication in a bound volume.